Problems in Surface Geometry and Topology

Problems in Surface Geometry and Topology
Abstract
Howard Masur

The principal investigator proposes to work on problems in the geometry
and topology of surfaces. The geometric problems consist of studying the
dynamics of flows on flat surfaces with cone angle singularities.
A particular example is the study of billiards in polygons with angles that
are rational multiples of pi. The particular aspect of this study will be to
attempt to find the asymptotic growth rate for the number of periodic orbits.
For some billiards such as the square, the growth rate is known.
Other more interesting examples are certain right triangles.
The principal investigator will study additional examples such as the
square with a slit or barrier. The idea is to find asymptotic quadratic
estimates. The topological problems concern the mapping class group of a
surface. This group is one of the main objects of study in surface topology.
One of the recent developments in group theory is to study the large scale
or asymptotic geometry of a group. The principal investigator proposes to
study the large scale geometry of the mapping class group with a goal of
showing that the mapping class group is quasi-isometrically rigid.

In the field of dynamical systems one studies the motion of objects.
The field had its origins in the study of the motion of the
planets. Billiards are another closely related example. There one has a
point mass that moves in straight lines so that when it encounters
the boundary of a region, it rebounds so that the angle of reflection
equals the angle of incidence. Billiards have been studied for over 100
years. In order to understand such a dynamical system one
needs to understand the long term behavior of the orbits. One particular
example of this long term behavior are the study of the periodic
orbits. These are the orbits that repeat themselves. The study of
periodic orbits for billiards in polygons in the plane is the main subject
of this proposal.